PGE/PG: St. Louis Program for Gender Equity in SMET

This one-year planning grant proposal is to enable the key collaborating organizations, Washington University, The St. Louis Science Center, St. Louis Academy of Sciences, and the Cooperating School Districts of St. Louis, to build an effort that will culminate in the submission of a Large Collaborative Project for the Program for Gender Equity in Science, Mathematics, Engineering and Technology. During this period a steering committee representing each of the organizations will define the roles of each, identify specific SMET activities for participants, establish a mentoring process, define which and how participants will be recruited, develop an assessment and evaluation plan, establish means for dissemination of the activities of the project, identify and form an advisory board, and prepare and submit the final proposal.